ALVINN-On-A-Chip: A Computational Sensor for Road Following

Kanade This project is building and deploying an intelligent imaging sensor for road following. The sensor generates the heading information required to steer a robotic vehicle by watching the road. On-chip processing is performed by a neural network trained to drive autonomously on public highways. The circuitry which performs the neural computations is integrated with a photosensor array in order to directly sense road-image information. The photosensor array includes analog signal processing in each cell and binary optics for better photon statistics, decreased transducer size, and less interference.